Interdepartmental (Biology, Anthropology, Chemistry) Genetic Analysis Facility

With National Science Foundation support, Dr. Todd Disotell and his collaborators at New York University will purchase an ABI PRISM 377 system which consists of an electrophoresis and detection unit, a Power Macintosh computer and software for DNA sequencing analysis or PCR fragment sizing and quantification. The system will allow high throughput through the use of multicolored fluorescence technology, allowing multiplex electrophoreses by co-loading the products of multiple PCR or sequencing reactions in the same lane. To increase the efficiency of the group of utilizing scientists, a thermocycler (Perkin-Elmer Geneamp PCR System 9700) along with a microcentrifuge (Eppendorf 5400 Series) and microconcentrator (Savant DNA SpeedVac) will be acquired and housed with the ABI genetic analyzer. A Power Macintosh computer will allow data collected on the ABI genetic analyzer to be analyzed off-line, allowing the computer controlling the ABI machine to be dedicated to data collection. This instrumentation will greatly improve the efficiency of six research projects, pursued by a number of investigators. These include the study of 1. the genetic and developmental mechanisms of morphogenesis and the evolution of form in rhabditid nematodes; 2. genetics of organogenesis in the gonad of C. elegans; 3.primate molecular evolution and population genetics; 4. evolutionary genetics of cave adaptations in fish; unidentified proteins in fission yeast that interact with Ras G-proteins and microtubules; and 6. recognition of DNA structure by HMG proteins. The machine will also be used at both graduate and undergraduate levels and thus serve a valuable educational as well as research function.